MRI/RUI: Acquisition of Computational Modeling Facilities for Research and Education in Engineering

EIA-0216375
Patrick A. Tebbe
Lisa Grega
The College of New Jersey

MRI/RUI: Acquisition of Computational Modeling Facilities for Research and Education in Engineering

This proposal from an REU institution, advancing the computational infrastructure of the institution (TCNJ) in Engineering, aims at improving the areas of computer aided design and numerical modeling (structural and thermal fluids) in both research and education. Three high performance workstations with 3-D graphics and visualization capabilities and expanded dynamic memory are requested along with licenses and training for two industry finite element modeling packages. The proposal addresses two strategic areas of national importance:

High Performance Computing and
Advanced Materials and Processing.

The former will be addressed through the infrastructure and training aspects; while the latter will be addressed through the research of the following topics:
Numerical Study of Transient and Interfacial Effects in Physical Vapor Transport and
Process Modeling of the Warm Forming of Aluminum.
Modeling will be done using commercial code such as ANSYS and FLUENT. Education and training activities are also planned. The project also addresses educational outreach and curriculum integration opportunities.

The funds requested include the equipment listed below and associated expenses.
Sun Blade 1000 workstations
ANSYS RFD upgrade license
FIDAP and Exceed software
Training for maintaining the packages

The equipment will support educational outreach programs and will be integrated with the curriculum to involve high school student, undergraduates and underrepresented groups.